Assessing Cognitive Diversity: Implications for Hispanic, Native American, and White Children's Mathematics Learning

This project seeks to provide new understanding of the cognitive and assessment conditions that support learning of culturally and linguistically diverse children. The study would examine some prevailing myths about the cause of differences in mathematics performance. The theory for the study is drawn from cognitive science theory, constructivism, and socio-cultural theories of learning and thus investigates the interaction among cognitive processes and the cultural context. Multiple forms of assessments would be designed. It will show whether assessment formats and design influence the measurement of performance, how different assessment methods that reflect the linguistic and cultural background of students affect performance, and it will conduct multivariate analyses to detect other performance factors. One goal of the study is to provide systematic examination of several explanatory factors of student achievement in mathematics for grades 4 to 8.